Recursive formulas for Gromov-Witten invariants

Award: DMS-0071393
Principal Investigator: Eleny-Nicoleta Ionel

The goal of the first project is to obtain new relations in the
cohomology of the moduli space of complex structures on a marked
Riemann surface. Using techniques developed in her earlier work,
the PI found several interesting relations, one of which could
prove the Faber conjecture about the generators of the
tautological ring. The second project seeks to find relations
between the relative and absolute Gromov-Witten invariants. Such
relations appear to be useful in mirror conjecture computations,
as well as in several other open problems in enumerative
geometry. The final project suggests two ways of extending the
Gromov-type invariants to `nongeneric' situations. This would
provide more refined information about the symplectic manifold.

Most of the problems in enumerative algebraic geometry are more
than a hundred years old. The questions are easy to ask, but the
progress in solving them using classical methods has been quite
slow. Recently, the same kind of questions arised in two
dimensional topological quantuum field theories from high energy
physics. Inspired by these theories, new methods lead in the past
couple of years to amazing progress in the field. The proposal
explores two new ways of approaching these old problems that
would further clarify the structure of the two dimensional
topological quantuum field theories.